Workshop on Facial Expression Understanding; July 29-Aug 1, 1992; San Francisco, CA

This workshop is and NSF-initiated planning workshop to determine research problems in the area of facial expression understanding that deserve future funding. The main goals are (a) to identify the most important areas of research on how to extract information from facial activity relevant to a persons emotional, cognitive and physical state; (b) to enhance communication between man and machine through the development of emerging computer vision capture techniques for facial processing and categorization of facial expression; (c) to consider how we can facilitate the training of new investigators in the relevant fields. The workshop will produce a set of recommendations to the investigative community and to NSF to help guide funding opportunities. There will be publications in standard journals of a report.The workshop participants represent a balance of researchers in the areas of facial expression understanding, computer vision and human computer interaction. Participants include researchers with NSF grants and researchers in government and industrial laboratories. The workshop will consist of plenary sessions and breakout groups focused on several research areas. The steering committee includes Dr. Paul Ekman of the University of California at San Francisco, Dr. Thomas Huang of the University of Illinois at Champaign-Urbana and Dr. Terrence Sejnowski of the Salk Institute.